An Observational Study of Intramonthly Quasi-Periodicities in the Northern Heimsphere, Extratropical Geopotential Height Field

This research is aimed at investigating 10-30 day quasi- periodic phenomena in the extratropical, cold season tropospheric geopotential heights of the Northern Hemisphere. The search for such phenomena is justified on experimental, theoretical and observational grounds. They will be examined using theory as guidance. A variety of statistical techniques will be utilized in order to assess the significance and quantify the importance of such phenomena. Unlike most other studies of this type the non-stationarity of these phenomena will be incorporated directly into the analyses and significance testing. Also, the analyses will allow for regionality and will be based on a much larger sample than most prior studies of this nature. Rotated complex principal components (RCPC's) will be used in this study. The RCPC analysis technique, which is a powerful statistical tool, has been introduced to meteorologists only very recently. This and several simpler approaches will yield time series of amplitude and phase. The statistical tests will be performed primarily on these time series. The results of this study should put into prospective various aspects of the variability of tropospheric heights in the 10-30 day range, including regularity, duration and relation of the quasi-periodic phenomena to the quasi-stationary state. This research is important because it applies rigorous statistical analysis to a long-term, high quality set of atmospheric circulation observations to seek answers to the question of the importance of intraseasonal oscillations on climate characteristics.